Mathematical Sciences Microcomputer Teaching Laboratory

The Mathematical Sciences Department of Appalachian State University will construct a mathematical science microcomputer teaching laboratory for their calculus and discrete mathematics sequences. An electronic classroom of interconnected student workstations, printers and instructor demonstration unit will provide instant computer access during lectures. The laboratory will be used by students to conduct experiments and complete out-of-class assignments. Members of the faculty have developed a new curricula, software and are writing a calculus laboratory manual. The grantee is providing a slightly greater sum obtained from non- Federal sources.